Support for the 2008 Hadron Collider Summer School; August 2008, Batavia, IL

This proposal partially supports registration and lodging costs for graduate students and young post-doctoral researchers from US institutions attending the 2008 joint CERN-Fermilab Hadron Collider Summer School which will be held at Fermilab 12th-22nd of August 2008.